Microcomputer Interfacing and Microelectronics

At Long Island University, Brooklyn Center, students in chemistry, biology, physics, science education and pharmacy are gaining added experience in constructing interfaces between laboratory instruments and microcomputers, through the recent acquisition of twelve state-of-the- art microcomputers together with appropriate monitors, printers, plotters, and interfacing breadboards. This is being accomplished in ongoing classes specifically devoted to such interfacing activities where students receive instruction in microcomputer interfacing and programming for controlling and gathering data from laboratory instruments.